Landscapes and Seascapes: Linkage between Marine and Terrestrial Environments and Human Populations in the North Atlantic (Iceland Sector). A Contribution to the HARC Initiative

This project will analyze the impacts of climate and environmental change on land and marine productivity and sustainability in the North Atlantic region around Iceland. Historical records from Iceland describe fisheries catches and hay and farm stock strategies over the last century. These will be evaluated in conjunction with climate, environmental, and oceanographic records to see if associated changes occur. Socio-economic factors will be evaluated by surveys of farmers and fishers. The project will contribute to our understanding of linkages between climate, ecosystem productivity and socio-economic adaptation and this understanding will allow better prediction of future climate change impacts.